Biodiversity & Ecosystem Informatics - BDEI : Radar Remote Sensing of Habitat Structure for Biodiversity Informatics

EIA-0131281
Bergen, Kathleen
University of Michigan - Ann Arbor

BDEI: Radar Remote Sensing of Habitat Structure for Biodiversity Informatics

Project Summary

Mapping for biodiversity informatics requires information on habitat so that known species
occurrences may be extrapolated to maps of potential species occurrences. That is, given the conversion
of known specimen locations into maps, how can we best predict where additional individuals or
populations of that species may occur? In the context of landscape ecology, landscape structure - its
multi-dimensional components - is a primary basis for habitat preferences of bird species. Vegetation
spatial composition, heterogeneity, variability, and scale are among the variables contributing to the
horizontal structure, while vegetation height, layering, and biomass are examples of variables in the
volumetric dimension. Combined together these variables, and others, describe the real multi-dimensional
structure of habitat.